CEDAR Improvements for the Sondrestrom Observatory

CEDAR Improvements for the Sondrestrom Observatory This proposal is to improve the ability of the Sondrestrom (Greenland) Radar Facility to meet the needs of its many users -- both radio and optical aeronomers. The aspects of the observatory to be enhanced are the radar facility, the optical facility and communications. First increased receiver sensitivity will improve the precision and time resolution of all radar observations. A higher transmitter pulse rate will enable atmospheric radar studies to be conducted in the ionospheric D- region and in the mesosphere. The addition of a site crew person whose primary responsibility will be to monitor and maintain the instruments collocated with the radar, especially the optical instruments, will improve significantly their reliability and usefulness. The increased number of optical instruments has necessitated the need for more experiment space, which will be met by the addition of an appropriate trailer. Finally, improvements in communications between the observatory and the rest of the world are planned. These include developing electronic mail, file transfer, and, possibly, remote login capabilities using the telephone lines and packet-switched networks.